Omnidirectional Vision

Surround perception is crucial for an immersive sense of presence in communication and for efficient navigation and surveillance in robotics. To enable surround perception, new omnidirectional systems
provide a new impetus for us to rethink the way images are acquired and analyzed. This project will be focused on two fundamental issues: the intrinsic geometric properties of catadioptric omnidirectional sensors and the space-variant signal analysis of omnidirectional images with non-uniform resolution. The PI has proven in the preliminary work that every catadioptric system can be shown to be equivalent to a generalized stereographic projection from a virtual sphere to the real image plane. He intends to develop a unifying framework for all catadioptric systems, where conventional perspective cameras will be just a special case, and exhaustively study invariants of the projections on reflective urfaces as well as efficient representations for reconstruction and
motion estimation. Catadioptric designs need a new signal-theoretic treatment since
shift-invariant processing does not apply in the non-uniform resolution of omnidirectional images. This research will make use of integral transforms that map the 2D signal to
the spatial-frequency domain of a plane with virtually uniform resolution. The investigation will be extended from the simple edge detection to template matching and to the computation of optical flow in omnidirectional images.